SBIR Phase I: A Physics Guided Machine Learning Framework for Monitoring Rivers using Satellite Imagery

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will be to provide near-real time information of changes in the spatial extent (flood mapping) and flow of rivers (water resource management) to insurance, energy, and agricultural stakeholders. Effective management of water resources and associated risks has become a major challenge for society. Floods are common disasters around the world and droughts lead to major disruptions to economies and a loss of life. This project will leverage artificial intelligence, and peta-bytes of satellite imagery to implement a physics guided data-intensive approach for advancing global hydrological modeling. The project will provide efficient and accurate imagery-derived observations of water dynamics in rivers at relatively low computational cost (compared with ground sensors) in a user-friendly web environment. This will be a significant step towards improving the modelling and forecasting of water resources around the world.

This Small Business Innovation Research (SBIR) Phase I project aims to develop advanced artificial intelligence techniques to track surface water changes in rivers across the globe using vast amounts of satellite imagery. While conventional artificial intelligence techniques are purely driven by data, the proposed technology incorporates known physical laws into these algorithms. This physics guided approach makes these techniques much more robust to atmospheric disturbances (clouds, shadows, haze, etc.), and enables synergistic use of imagery datasets at different resolutions which are two major issues with satellite imagery analysis. Furthermore, the proposed uncertainty quantification techniques will enable domain experts to incorporate their local knowledge about river flows into the framework to refine results.